The Actionary: A Dictionary that Portrays Natural Language Expressions as Context-Sensitive Simulations of Human Actions

Abstract

IIS-9900297
Badler, Norman I.; Joshi, Aravind, K.; & Palmer, Martha
University of Pennsylvania
$178,712 - 12 mos.

The Actionary: A Dictionary that Portrays Natural Language Expressions as Context-Sensitive Simulations of Human Actions

The `Actionary' is an action database that associates natural language expressions with context-sensitive graphical simulations acted out by ``smart'' virtual human agents. It rests on a foundation of Parameterized Action Representations (PARs) that explicitly link Lexicalized Tree-Adjoining Grammar structures to the Parallel Transition Networks that drive virtual human motion generators. PARs provide a conceptual representation of different types of actions: changes of state, changes of location (kinematic), and exertion of force (dynamic). To date, only change of state actions have been addressed by natural language processing systems. It is known that there are no linguistic distinctions between `running,' `jogging,' or `loping,' and that these can only be distinguished by making reference to visual models and context. The Actionary approach defines actions involving continuous changes or process execution with reference to situated concrete models suitable for a visualized performance. The Actionary will facilitate: Translation of human action instructions into different languages for sample action execution for education (e.g., foreign language learning) and training (e.g., machinery operation and repair). Low bandwidth communication of multi-person activities: by transmitting compact textual instructions locally interpreted via the Actionary, smart agents can execute instructions for potential applications in remote skill training, virtual video-conferencing, and 3D virtual communities.